Young Scholars in Computing

9353023 Abernethy Furman University will initiate a four-week summer residential Young Scholars project in computer science for twenty-seven students entering grades 11 and 12. Topics such as neural networks, image processing, algorithm complexity and shortest network problems will be explored using lectures, videos, bibliographic materials and laboratory work. Program instructors and undergraduate lab assistants will work with small groups of research teams consisting of four or five participants.students will present their results at a closing day ceremony. Ethics of science will be observed using the case study method. Career activities will include field trips to local computing sites and a "shadowing the professional" activity at local job sites. Follow up activities including two one day conferences and presentations by participants on their academic year research activities conclude the program. ***